Coalition to Increase Minority Doctorates

The Coalition to Increase Minority Doctorates is a sequenced, comprehensive academic achievement program with the long-term objective to produce an additional 100 minority Ph.D.'s per year in mathematics, science, and engineering-related fields. Shorter-term objectives (through academic year 1995-1996) are to serve 43,000 precollegiate, 2,000 undergraduate, and 500 graduate students. The program operates at the secondary school level at four broad sites (in Arizona, Colorado, New Mexico, and Utah). The program assists minority students to achieve academic success at 38 participating colleges in Arizona, Colorado New Mexico, Utah, and western Texas. At the graduate level, through Project 1000, the students are admitted and academically supported at 55 participating graduate school around the nation. The coalition uses a variety of proven instructional, academic, and support tools to increase minority student performance. These include Algebra (pre-algebra preparation), Test Skills (admission preparation), and Options for Excellence (Advanced Placement/Honors program for minority students) at the secondary school level; summer bridge programs, research institutes, student internships, and student-faculty research projects at the undergraduate level; and a variety of academic and financial aid advisement, consultation, and Graduate Record Examination preparation services offered through Project 1000 at the graduate level.